NSF Young Investigator

9457750 Vakakis This is a National Science Foundation Young Investigator Award. The main research efforts by the PI include dynamics and control of periodic engineering systems; response of layered composite media and system identification of mechanical structures using analytical and numerical techniques. His teaching activities involve a design of laboratory exercises on the dynamics of physical systems, development of two new graduate courses in the area of nonlinear dynamics and structural acoustics, and dynamics/control integration in undergraduate education. ***